Cation Radical Explorations

This grant from the Organic Dynamics Program supports the continuing work of Dr. Joseph P. Dinnocenzo at the University of Rochester, who is studying the reactions of molecules from which a single electron has been removed. Investigations of these reactive species will provide fundamental information on acid-base reactions and should lead to new methodology in synthetic organic chemistry. The experiments to be carried out by Dr. Dinnocenzo will comprise two related investigations of cation radicals. The first is designed to provide a detailed understanding of the kinetic acidities of tertiary amine cation radicals and alkylaromatic cation radicals. Preparation, characterization, and proton-transfer studies of isolable cation radical salts will afford kinetic and thermodynamic data that will help to identify the similarities and differences between cation radical deprotonations and those of neutral, closed-shell organic molecules. The second investigation is designed to elucidate the scope, mechanism, and synthetic applications of cation radical reactions for cyclopropanes having unsaturated substituents.